Presidential Faculty Fellow

9553157 Selen This Presidential Faculty Fellow award supports research on the properties of B-meson decays observed in the CLEO detector at the Cornell University colliding beams facility CESR. The PI will continue a program of detector research and development to improve particle identification techniques. He will maintain and expand a community- outreach educational effort in the local area and develop materials for a freshman level introductory mechanics course at the University of Illinois. ***